Ultrasonic NDE of Nonlinear Viscoelastic Media

The purpose of this Expedited Award for Novel Research (EANR) is to explore the use of the ultrasonic nondestructive evaluation (NDE) technique for determining the nonlinear viscoelastic properties of thermoplastics. This seemingly obvious application of ultrasonic NDE to nonlinear viscoelastic materials has never been attempted in the past due to the nonuniqueness of the ultrasonic parameters which are obtained through solving the inverse problem. Recent advances in the modeling of nonlinear viscoelastic materials as well as the advances in numerical analysis of nonlinear problems now provide the opportunity, possibly prematurely, for the proposed research. Should this exploratory study demonstrate the feasibility of using ultrasonic NDE techniques on nonlinear viscoelastic materials, it will open a new research field in process control, inspection and reliability assessment of commercially popular thermoplastics.